CCResPy: a Coupled Cluster Response Program in Python for Molecules and Periodic Systems

Marco Caricato of the University of Kansas is supported to develop first-principles, accurate methods for the simulation of electronic properties of extended systems. The project will develop methodologies to simulate electronic, spin, and nuclear response properties of extended systems at coupled cluster with single and double excitations with periodic boundary conditions (CCSD-PBC) level. CC theory is one of the most successful approaches to simulate molecular properties, and it will be extended to the realm of solid materials. These methodologies will allow the study of materials for applications in many areas of Quantum Information Science (QIS), including electronics, spintronics, charge transport, sensing, and quantum technologies, using accurate first-principles methods. The broader impact of this project hinges on the use of computational quantum chemistry to benefit society both in terms of technological advances and workforce training. The most impactful aspect of this research is the development and distribution of an open-source program, CCResPy, that will contain the developed methods and make them available to the community. This code is written in Python, a modern and easy-to-read language, which makes the learning curve for new developers considerably less steep.

Caricato will develop the theory and the software to apply the CCSD-PBC method to extended systems in the solid phase. The intellectual merit of this project is twofold: 1) To improve current algorithms in terms of efficiency and robustness; 2) to develop methodologies to evaluate new properties of materials: electronic absorption and circular dichroism spectra of periodic systems, energy gradients with respect to nuclear coordinates, and two-component CC linear response functions. These methods will be included in new releases of the open-source CCResPy software, written in Python. The current version of the software provides significant capabilities and its structure is easy to read thanks to Python’s powerful syntax. However, there are severe limitations that prevent its application on realistic systems. The first aim of this proposal is to make the code more efficient in terms of memory use and rate of convergence of iterative procedures. The second aim is to implement new methods that will allow us to study important electronic and structural properties of extended systems at an unprecedented level of accuracy. These methods will allow prediction of the optimized structure of surfaces and solids, their optical properties, and even to investigate spin-forbidden electronic transitions. This can provide accurate benchmarking data for more efficient but more approximate methods, as well as fundamental insights on electronic properties of materials used in a variety of technological applications.